Conference on Submanifolds, Singular Varieties and Stratified Spaces

Abstract

Award: DMS-0413651
Principal Investigator: Sylvain Cappell

This research conference will bring together workers and students
in three key and currently active geometrical areas: singular
varieties, submanifolds and knotting, and stratified
spaces. These three areas of topology have historically enjoyed
vigorous and productive scientific interactions, spurring
important innovations through sharing ideas. Moreover,
developments and problems in these subjects in topology are
connected to parallel questions in other branches of geometry,
analysis and algebraic geometry, where there are foundational
questions concerning extending "classical" methods from smooth
(nonsingular) settings to more general ones in which
singularities can arise. Exciting recent developments to be
discussed at this meeting include investigations on how
singularities of embeddings and immersions in four-dimensional
manifolds are shedding new light on basic questions concerning
classification and structure of four dimensional manifolds; and
how such questions also interact with new approaches to deep
invariants of knots and links in three dimensional manifolds and
their cobordisms. Also to be discussed are various theories of
characteristic clases for singular varieties and foundational
questions concerning their definitions, calculational methods,
and applications, e.g., to current developments in transformation
groups and to geometrical combinatorics of polytopes.

This research conference on important, current geometrical
approaches to topology will bring together researchers and
students who are investigating some mathemtically basic,
ubiquitous and related topological phenomena from several
different perspectives. These involve spaces, called varieties,
that can have variable geometry at different points. Such
variations in geometry, called singularities, can be analyzed
using mathematical theories of knots and links (in many
dimnensions); to elucidate this, such varieties are decomposed
into strata. Because the natural spaces that arise in many
research problems in both mathematics and theoretical physics
display such singularities, investigations of such varieties, of
their strata and their singularities, and of related questions
about knots and links are needed. Recent and exciting
developments to be analyzed include relations of such questions
to four dimensional geometry, to the symmetries and invariants of
such spaces, and to applications to problems in enumeration and
combinatorics that arise in a very wide range of scientific
problems.